Solve-It!: Puzzles and Challenges

9614786 Yao This project is composed of a 1,500 square foot permanent, and traveling exhibit, and a schools program focused on problem- solving, targeted primarily for children in grades 5-8. The exhibit includes a variety of classroom-tested puzzles, interactive computer programs, and hands-on challenge problems. These will enable participants to try and utilize different problem-solving strategies, and gain experience in spatial relationships, communicating mathematically, and reasoning inductively and deductively. Materials produced include: Solve It! Trunks, a problem-solving program that teachers can use as a single unit or integrate throughout the year; a publication which will enable others to reproduce the exhibits; and a Guide with suggestions about how to use the Problem-Solving Program. Other activities include Student and Family Problem-Solving Programs, and puzzle- based workshops.